REU Site: Geoscience Research Experience for Community College Students

This project will provide community college students with hands-on research opportunities in a variety of scientific disciplines. Students will be selected to participate in intensive research projects, working closely with faculty and researchers who offer mentorship and guidance. Students will gain valuable scientific skills, professional networks, and career exploration, strengthening the workforce of outstanding scientists and engineers.
This REU site focuses on Earth and environmental sciences and provides a unique opportunity to increase persistence in science, technology, engineering, and mathematics disciplines for community college students. The students will develop skills in programming, research methodologies, statistical analysis, and utilizing new technologies through independent research projects and collaboration within a cohort of researchers. These experiences will prepare students for the workforce and provide them with the tools to address current and future natural hazard events and environmental challenges.